Delivery of Electronics Technology Curriculum and Experiences to Underserved Rural High School Students in Western South Dakota Using an Innovative Distance Learning Model

Black Hills State University (BHSU) and Western Dakota Technical Institute (WDTI) have created a consortium including school districts and industrial partners to develop, deliver, refine and evaluate a network-based distance education model for the delivery of basic electronics curriculum. This project is designed to improve technology instruction, experiences and opportunities for juniors and seniors in six school districts. Key elements of the project include on-site teacher training course content and delivery; the implementation of distance education at participating high schools; professional and technical support for participants provided by faculty and industrial partners; technical experiences for students provided by industrial partners, evaluation of the program by all partners; dissemination about the project at the local, state and national levels; and/or credit at BHSU or WDTI for the proposed secondary course work.